Conference on Social Identity, Intergroup Conflict, and Conflict Resolution, Rutgers University, April, 1999

Support is provided for a two-day symposium on social identity, intergroup conflict, and conflict reduction. This is the third program in the biennial Rutgers Series on Self and Social Identity. The purpose of the symposium is to elucidate the many ways in which identity and intergroup conflict are interrelated. The goal is to increase understanding both of social identity and intergroup harm doing. The symposium will also address ways to reduce intergroup conflict by taking into account the role of social identity. The symposium will take place in April, 1999 on the Douglass Campus of Rutgers University. An edited volume based on the symposium will be published by Oxford University Press.